Topology and Sweep-Out Combinatorics Near Dimension Three

The proposer's recent research has centered on knot theory and the
theory of 3-manifolds, particularly Heegaard splittings of 3-manifolds
and related notion of unknotting tunnels. The main approach might
humorously be called neo-classical, for it focuses on the behavior of
surfaces contained in the 3-manifolds (a classical approach) but in a
more sophisticated way. For example, in combinatorial arguments on
surface intersections, graph-theoretic lines of argument (on the arcs
of intersection) have proven to be almost magically effective in
distilling geometric information; in Gabai's theory of sutured
3-manifolds, intersection with a `parameterizing surface is the chief
mechanism for transmitting information from the end of the hierarchy
back to the beginning; the minimax principle usually called ``thin
position" exploits the intersection between a stationary surface and a
moving surface to understand the topology of the entire manfold.
Comparing intersections between two sets of moving surfaces (using the
tools of Cerf theory) can be even more effective as in, for example,
the Gordon-Luecke solution to the knot complement conjecture or the
proposer's work with Rubinstein on explicit bounds for Heegaard
stabilization.
The problems addressed in this proposal have been chosen not solely
for their intrinsic interest but also because the hope is that
techniques developed in their solution would point the way to the
solution of grander problems and, more generally, give insight to the
general structure of knotting phenomena (broadly construed) and the
structure of 3-manifolds, particularly structure that is on the edge
of and interacts with natural questions about 4-manifolds. An
underlying theme of this proposal is that there is much to be learned
about knot theory and the theory of 3-manifolds via a geometric
approach that is more flexible than differential geometry but more
structured than simple combinatorics. This medium ground is
characterized by a use of thin position arguments, in which sweep-outs
of 3-space by level planes or sweep-outs of 3-manifolds by Heegaard
surfaces can reveal structure that might be difficult to find by other
techniques.

One of the most basic observations about the world around us, apparent
almost from our birth, is that it is 3-dimensional. So it is of
interest to understand objects with this property: anyone living in
the object would see their world as 3-dimensional. Such objects are
called 3-manifolds, and the broad goal of this research proposal is to
increase our understanding of them. Three-manifolds support
interesting phenomena. One of these phenomena is knotting, in which a
simple object like a garden-hose (or a string of DNA) can be
maneuvered so that its positioning in space is quite complex. More
generally, objects like chemical molecules can be put in a 3-manifold
in extraordinarily complex ways if one thinks of their parts as made
of rubber which can be knotted and interweaved. Tools which are being
developed to understand 3-manifolds help us understand knotting and,
conversely, understanding knotting helps us understand 3-manifolds.
One success of this ongoing research program is the proposer's
solution (with Abigail Thompson) of the graph-planarity problem: There
is a simple criterion, algorithmic in execution, which determines
whether a knotted graph in 3-space (e. g. a chemical molecule) can be
isotoped to lie in a plane, and so in fact is unknotted.